International Workshop on the Physics and Experimental Techniques of High Energy Gamma Ray and Neutrino Particle Astrophysics; Little Rock, Arkansas; Spring 1989

This award will support in part the International Workshop on the Physics and Experimental Techniques of High Energy Gamma Ray and Neutrino Particle Astrophysics, May 10-13, University of Arkansas at Little Rock. The workshop will concentrate on discussions of: particle physics and astrophysics to be studied by the next generation of detectors; the latest experimental and theoretical results; and the technical advances related to the development and operation of detectors.